Polymer Science and Engineering: The Shifting Research Frontier

9502820 Raber This award provides funds for the purchase of additional copies of the NRC report "Polymer Science and Engineering: The Shifting Frontier" to be distributed to university departments. %%% This award provides funds for the purchase of additional copies of the NRC report "Polymer Science and Engineering: The Shifting Frontier" to be distributed to university departments. ***